Heterogenization in Elastostatics

The "heterogenization" refers to the representation of the solution to a heterogeneous problem of elastostatics in terms of the solution to the corresponding homogeneous problem. Solutions of homogeneous problems are already known in many cases, while solutions of problems for bodies composed of two (or more) different materials are generally difficult to obtain. The approach to be followed in this study is based on the method of images due to Kelvin, never exploited in elastostatics, and should lead to algebraic formulas linking quantities of interest in the homogeneous problem to the corresponding quantities of the heterogeneous problem. The formulas should remain the same for any type of loading produced by any type of singularities, such as concentrated forces, moments, and dislocations. Both two-dimensional (plane and antiplane deformation) and three-dimensional states of stress should be tractable by this method.